Infinite Horizon Optimization

Infinite Horizon Optimization involves the study of infinite stage stochastic and deterministic programming, and subsumes a rich class of applications including most production and inventory control problems, as well as optimal search, capacity expansion and equipment replacement problems. The PI's view the space of feasible solutions as an infinite dimensional Hilbert space, and propose to establish sufficient conditions for the convergence of finite to infinite horizon optimal solutions, and to explore the applicability of well-known direct methods of solutions. Professors Smith and Bean are well-known for their work on infinite horizon optimization problems. The University of Michigan provides a fine research environment for this project. An award is highly recommended.